Nineteenth Riviere-Fabes Symposium; April 15-17, 2016; Minneapolis, MN

This award provides funding to help defray the expenses of graduate students and postdocs attending the "Nineteenth Riviere-Fabes Symposium" that will be held from April 15-17, 2016, on the campus of the University of Minnesota.

This annual conference, of which the 2016 meeting will be the nineteenth rendition, honors the mathematical legacies of the late Nestor M. Riviere and Eugene B. Fabes by focusing on recent developments in analysis, especially in the field of partial differential equations. The 2016 program will feature four principal speakers (Andrea Bertozzi, Fanghua Lin, Jonathon Mattingly, and Roman Vershynin), each of whom will deliver a two-hour lecture. The program allows ample time for informal discussion among the participants.